SBIR Phase I: Co-Encapsulation of Efficacy Enhancers to Improve a Mycoherbicide

This Small Business Innovation Research Phase I project is to use innovative co-encapsulation processes to enhance infectivity and efficacy of the biocontrol agent, Colletotrichum capsici, for control of the noxious weed "pitted morning glory". The enhancing components to be examined in this project include germination stimulants, conidia protectants, moisture retainers and nutrient supplements that are encapsulated with conidia of C. capsici inside a sprayable and biodegradable microcapsule. This co-encapsulation technology will lead to commercial development of mycoherbicides and other biocontrol agents that are expected to be economical, practical and biocompatible.
The commercial application of this project is in the area of weed control agents for use in agriculture.